Computer Assisted Laboratory for Introductory Psychology (CALIP)

This award provides funds to the Psychology Department at the University of Connecticut to purchase equipment which will help improve the introductory psychology sequence at the University. The school has already funded a pilot program (tested in General Psychology 1) which provided some student computer stations, one network file server and one instructor's station. The pilot program extended control over stimulus presentation, data collection and data analysis. New programs were written and existing programs modified to increase the range and complexity of the experiments which formed the core of the labs. This award will allow the program to be expanded to give all students the opportunity to participate in the Computer Assisted Laboratory for Introductory Psychology. It will also enhance the pilot software and develop new software to enrich the understanding of experimentation and increase the level of computer literacy of primarily freshman and sophomore students. The grantee is matching this award with non-Federal sources.